Design Sensitivities and Shape Optimization for Nonlinear Solid Mechanics Problems by Boundary Element Methods

This is a project to calculate design sensitivity coefficients for nonlinear solid mechanics problems and their use in design. It is to be done in conjunction with the University of Arizona.